Action of Le and Lip1 Genes in Controlling Stem Growth of Pisum by Gibberellins and Light

9318358 Sponsel The proposed research will utilize gibberellin (GA) biosynthetic mutants and photomophogenetic mutants of Pisum sativum (garden pea) to investigate the mechanisms by which a plant can regulate both the levels of active hormone and the responsiveness of its target tissue. In the le dwarf mutant of pea the conversion of gibberellin A20 to GA1 by 3Beta-hydroxylation is reduced in intact plants. GA1 is the active GA for internode growth in pea. Some recently reported results necessitate a re-examination of the biochemical basis for the le mutation. In vivo and in vitro feeding studies of labeled GAs will be used to examine whether the le mutation interferes with the transport of GA20 from leaves (which are its putative site of synthesis) to stems, or whether the le locus could code for a regulatory factor. Qualitative and quantitative analyses of the GA metabolites will be conducted using gas chromatography-mass spectrometry providing definitive identification. Since 3Beta- hydroxylation is one of the most important steps in GA biosynthesis it is imperative that the functional basis of the le mutation is defined. The newly characterized lip1 mutation of pea results in light independent photomorphogenesis. In this mutant the severe reduction in stem growth which normally takes place when pea seedlings are transferred from dark to light (de-etiolation) is manifest in complete darkness. Biochemical studies suggest that the signal transduction pathway from phytochrome A is affected in the mutant. An investigation of the effect of this mutation of GA levels, metabolism and on tissue responsiveness will be conducted in order to define which aspects of GA biochemistry are a factor in photomophogenesis. ***